US-Europe Planning Visit: Images of the City -- Researching and Teaching Urban Geographies

This twelve-month award allows the PI to participate in a planning meeting in preparation for a collaborative workshop with counterparts from Finland, The Netherlands, and the UK. The work will focus on communication gaps among urban experts, geography classroom teachers, academic geographers, and textbook authors in Europe and the US.

The exploration of these issues in an international collaborative context is expected to highlight areas in which additional research and communication are needed and to strengthen global collaboration among geography educators. A dialogue among all sectors of the geography community will enable that community to address the need for global standards in geography education.

Ultimately, the project will further the goal of producing world class geography students, foster intellectual cohesiveness in the field, and help narrow the gaps among different groups of practitioners of urban geography.